Summer Academy in Economic Science

Oklahoma State University will initiate a four-week, residential Young Scholars project in Economics for 25 students entering grades 11,12. The program will consist of three general areas: 1) development of basis framework of economics; 2) application of framework to contemporary issues of social justice and ethical behavior in business; and 3) an examination of the impact of globalization on the U.S. economy.